CEDAR: Student Lab Access to Experiments at Sondrestrom, Greenland

The PIs propose to develop a real-time interactive laboratory permitting undergraduate and graduate students in Alaska to conduct and participate in real-time experiments at the NSF Sondrestrom Radar Observatory. An example of this proposal's objective is the ability in real-time to modify the radar mode to take advantage of certain geophysical conditions such as an auroral riometer absorption, or PCA event. The potential advantage of interfacing the Sondrestrom data stream to the NCSA standards would be to enhance the data display and analysis capabilities of students and provide a bridge to supercomputer models.